Characterization and Cloning of Immortalized Suprachiasmatic Cells

Earnest 9511238 All living things have internal "clocks" so that even when they are placed in constant environmental conditions, certain physiological functions display spontaneous changes that cycle with a regular period of about 24 hours. Specific cells in the hypothalamic region of the brain are believed to generate the rhythm, but how they do so is unknown. With this award, Dr. David Earnest will test if individual brain cells are programmed for spontaneous rhythms by cloning individual cells and studying their innate potential to display rhythmic changes in function. This work will advance basic understanding of biological rhythms, and may also provide cell lines for future detailed biophysical qtudies of the mechanisms of rhythm generation. ***